FT-Electron Paramagnetic Resonance Spectrometer

Matching support for upgrading of a departmentally shared facility for Electron Paramagnetic Resonance Spectrometery to allow time-domain and multidimenional Fourier-transform experimentsis requested. The selected spectrometer system is the Bruker ESP-380E-FT-300/FT/CW EPR spectrometer and DICE/stochastic-Pulsed-ENDOR accesory. This instrument will be the first of its kind on the Princeton campus and will stimulate new research applications that are currently not accessible here. An initial group of 12 investigators distributed across three academic departments and an industrial laboratory will employ the instrument to extend their research programs in the following primary areas:(1) Structure and function of multi- nuclear metallo-enzymes, (2)molecular robes of the mechanism of Cytochrome P450, (3) Zinc finger proteins and heme protein folding, (4) Probing conformational changes in actin by EPR, (5) Observing and exploiting intermolecular multiple- quantum coherences in solution ESR, (6) Selenium- dependent molybdo-pterin enzymes.